Acquisition of an Ion Beam Milling System

This grant will provide partial support for the acquisition of an beam milling system for the preparation of thin foils of metal and ceramic materials for viewing in the transmission electron microscope. This capability is essential in order to obtain the high-magnifications required to resolve the fine structure of the materials. The equipment will be used in the course of at least nine on-going research investigations, and will be housed in their central Dartmouth Electron Microscope facility.